Application of Optically Addressed Spatial Light Modulators for Particle Image Velocimetry Fringe Processing

WPCf 2 B J d | x MACNormal 5 X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P T I. A. 1. a.(1)(a) i) a) T 0 * * . , US X ` h p x (# % '0* , .81 3 5@8 : < : } D 4 P 0 * * . , US , 3 ' 1 Z MACNormal Johnson 9306538 This grant is to investigate the use of an amorphous silicon/ferroelectric liquid crystal optically addressed spatial light modulator (OASLM) (5) as essentially real time film on which to record the fringe patterns and perform the Fourier transform via a coherent optical processor. Since this device has a frame rate of ~3 kHz the PIV optical processor should be capable of 3 orders of magnitude speed increase over the best convential electronic processor. ***